NSF: Request for Funding for Student Participation in FAST 2007

The 6th USENIX Symposium on File and Storage Technology (FAST) is scheduled
for February 2008. FAST is a leading forum for innovative research in storage
systems, bringing in researchers and practitioners from both industry and
academia. Topics include reliability, performance, mobility, power management,
measurement, and other topics germane to file and storage systems. This NSF
proposal requested funding to support the attendance of US-based graduate
students. Participation in leading conferences is an extremely important part
of the graduate school experience, providing the opportunity to interact with
more senior researchers and to be exposed to leading edge work. The support
requested in this proposal makes possible the participation of students who
would otherwise be unable to attend. Particular attention will be paid to
directing support towards underrepresented minorities including women,
African-Americans, and Native Americans.